Problems in Automorphic Forms, Arithmetic and Geometry

Abstract for award DMS-0402044 of Ramakrishnan

The general theme of this proposal is the study of the ubiquitous cusp
forms in various contexts. The four specific problems proposed deal with the
arithmetic, analytic, geometric and group theoretic
aspects of these fundamental objects. To elaborate, the first problem asks
if certain four dimensional Galois representations attached to cusp forms
are irreducible, and such results are unknown in dimensions bigger than 3.
The second problem deals with obtaining *exact* averages of twisted L-values
of holomorphic cusp forms, and the ensuing implications for class numbers
and a diophantine question. The third problem suggests that in special but
pervasive instances (like for the Delta function), there should be
Calabi-Yau varieties which geometrically realize the associated motives and
hence the L-functions, which encode the statistical properties of Frobenius
traces. The fourth problem is concerned with the *-selfdual representations
of reductive groups G admitting involutions *, and asks for a study of a
certain sign attached to cusp forms on G.

This project will investigate certain mysterious and deep relations
Between automorphic functions, which are continuous and pulchritudinous, and
discrete objects like the integers and their building blocks, namely the
prime numbers, which exhibit haunting statistical properties. Automorphic
functions encode enchanting symmetries occurring in nature like the
waveforms on a disk. The discrete tones therein have alluring arithmetical
meanings. Often mathematicians and physicists build generating functions
out of discrete collections of numbers, and the pressing problem is to know if
these functions admit hidden symmetries, that is, if they are describing
the tones of automorphic functions. If they do, then miraculous benefits emerge.
Exploiting them is a worthy endeavor, and there are many gold mines yet to be discovered.